Theoretical Physics

A broad program of research in theoretical physics and astrophysics will be carried out by John Bahcall and Edward Witten of the Institute for Advanced Study and by a large number of postdoctoral fellows and more senior visitors. Topics to be pursued include the behavior of neutrinos from the sun, the possibility that neutrinos have mass, the relations between apparently different string theories of the fundamental forces, basic questions in quantum field theory, and various topics in cosmology. These are all areas in which exciting progress is being made, and further research is expected to be very fruitful. Neutrinos are among the most abundant elementary particles in the universe, and string theory is a very promising candidate for a theory which can unify all of the basic forces of nature.